Monte-Carlo multi-step ahead forecasting for nonlinear time series

ABSTRACT
PI: Lijian Yang
PROPOSAL : 0405330

This research develops multi-step ahead forecasting methods for
nonlinear time series using a Monte-Carlo procedure. The focus is on
taking advantage of three types of simplifying structures in nonparametric
auotoregression time series models: small number of significant lags,
additive model, and additive coefficient model. For time series data
generated according to one of these structures, plug-in type predictors
are developed by estimating the data generating process (DGP) and
then using the estimated DGP to generate realizations. By employing local
polynomial and polynomial spline techniques for the regression structure
and kernel density estimation for the noise distribution, the empirical
distribution of these generated realizations approximates the theoretical
distribution of the time series at rates much faster than that of general
multivariate function smoothing. Hence, the proposed forecasts are much
more accurate than those made with many existing methods. Multi-step ahead
forecasting of time series generated by either multiple index or partially
linear autoregression are also studied, for which the forecasting
accuracy is improved significantly as well. Besides being
theoretically justified, the proposed forecasting methods are expected to
be computationally expedient and should be easily accessible to
practitioners working with time series data.

Time series data appear in many scientific disciplines in the form of
sequences of numbers observed over fixed time period. Economic time series
include leading indicators such as inflation index, oil price, real GNP,
unemployment rate, etc., observed monthly or quarterly. Climatology
studies the trend and variation over time of humidity, precipitation,
temperature, etc, while geographers collect daily measurements of such
variables as leaf area index, soil adjusted vegetation index, soil
moisture index and investigate relationships that exist among them and
with other indices. Of central importance in the analysis of time series
is the understanding of the hidden mechanism that generate the data
sequentially, and the use of such knowledge to predict what the next one
or few numbers will be. These are one- and multi-step ahead forecasting.
The statistical tools developed through this research significantly
enhance the capability to forecast macro-economic time series data several
quarters, even years, ahead. Advanced forecasts of this kind can greatly
help the making of macro-economic decisions. These forecasting methods
have strong impact in multiple disciplines beyond macroeconomics, for
instance, in the study of interaction between climate change and the
various geographic indices.